Positron-Molecule Interactions

Three aspects of positron molecule interactions are investigated experimentally: annihilation rates, annihilation gamma ray spectra and the formation of positive ions. Previous research has indicated that the annihilation rates in larger organic molecules are dominated by long-lived complexes. This has raised new questions about the attachment process which may have significant implications for cosmic annihilation spectra and galactic evolution.